The Transformation of SN1987A into a Supernova Remnant

AST-0206048
Crotts

Supernova 1987A, the closest SN seen in nearly four centuries, and the most intensely
studied ever, is rapidly turning into a SN remnant as the ejecta from the explosion now
strikes the circumstellar envelope shed by the star over the last million years. We propose
to observe this process using a combination of optical, IR and UV programs, plus further
space-based studies (supported by NASA). These will allow us to map the structure of
the envelope, both in its unperturbed state and as it is destroyed by the ejecta. This
will allow the first complete study of SN remnant formation evolution ever undertaken.
Our previous observations of the 3-D structure, velocities, density and composition will
establish the nature of the pre-explosion nebula and the mass loss processes that created it,
while the excitation of this nebula by the X and EUV flux created in the collision will allow
us to re-analyze it once more. In addition to these unprecedented studies of a SN remnant,
will continue to use light echoes from the SN explosion to explore the interstellar
medium in the 30 Doradus star-formation region, to study the echo of the UV pulse from
SN shock breakout through the progenitor star's surface, and to accurately determine the
distance to the Large Magellanic Cloud { a fundamental rung on the extragalactic distance
ladder.
***